Metallocene-Based Redox-Switchable Surfactants for Separations

This project is concerned with the synthesis and characterization of ferrocene based surfactants. Ferrocene is a chemical group which consists of an iron atom in the +2 oxidation state sharing electrons with two five membered rings so that the rings become aromatic. The ferrocene can be oxidized to a unit positive charge by the loss of an electron from the iron so that the Fe is in the +3 oxidation state; addition of the electron regenerates the ferrocene as Fe is reduced back to the +2 state. The uncharged and +1 charged ferrocene therefore form a reversible (switchable) redox pair. The study will attempt to attach hydrocarbon moieties to one ring of the ferrocene group. The attachment of the hydrocarbon group gives the resulting molecule a switchable surfactant character; in the oxidized, uncharged form it is essentially a nonpolar molecule while in the oxidized form it is a cationic surfactant with a charged headgroup and a hydrocarbon tail. This project will explore various synthesis routes for making different kinds of switchable surfactants, and will characterize the ability of the surface active form to lower interfacial tension, and to form micelles. The micelle forming ability of the surfactant is a key feature. When the surfactant is in the surface active form and has formed micelles, reduction will deactivate the amphiphillic character thereby causing the micelles to breakup. This ability to break micelles on demand is important in many surfactant based separations where micelles solubilize targeted products. In each of these separations, a final step is to remove the solute from the micelle; by using switchable surfactants, reduction can affect breakup of the micelle and release of the solute.